Mathematical Sciences: Algebra

This research is concerned with the representation of finite groups and related rings. Special emphasis will be placed on Clifford Theory, group-graded rings and characters of solvable groups. This research is in the general area of group theory. The project will focus on the representation of finite groups and related rings. This is currently an active area of mathematics. The results will be of interest to many people in the mathematical community.